SHF: Medium: MACANTOK -- a MAchine-Code-ANalysis TOol Kit -- and its Applications

Recent work has revealed how important it is to examine the
properties of programs after they have been translated to machine
code. For instance, many security exploits depend on
platform-specific features that are not visible at the source-code
level, such as memory-layout details (e.g., the offsets of variables
in activation records and padding between fields of a structure). The
expected contributions of the project include (i) a
language-independent tool generator that, from a formal specification
of a given instruction set's syntax and semantics, generates
implementations of dynamic-analysis, static-analysis, and
symbolic-evaluation components tailored to that instruction set, and
(ii) a variety of prototype language-specific applications (i.e.,
specific machine-code-analysis tools), including

o A tool to automate the detection of bugs and security
vulnerabilities in machine code. The aim is to identify definite
bugs and vulnerabilities, and information about what is required to
trigger them.
o A tool to check sequencing properties on machine code.
o A tool that can aid in detecting interoperability problems among
components by inferring input/output and network-communication
formats, and by summarizing the behavior of a component's client.

The results will help programmers create correct, reliable, and secure
software systems by providing them with new kinds of tools to (a) verify
properties of a program’s behavior, and (b) find potential bugs and
security vulnerabilities.